Synthesis and Reactions of Transient Acids

This research focuses on the synthesis and characterization of molecules, called photoacids, that exhibit changes in acid-base properties on optical excitation. Synthetic methodologies will be developed to achieve molecules whose photoacidity can be tailored thereby providing new methods for studies of proton transfer reactions and novel polymerization catalysts. The research introduces graduate and postdoctoral students to new concepts in acid-base chemistry and kinetics, and to the methodologies to examine these transient effects. With this award, the Organic and Macromolecular Chemistry Program supports the research of Professor Laren Tolbert of the School of Chemistry and Biochemistry at Georgia Institute of Technology. Professor Tolbert will focus his research efforts on the synthesis and excited state chemistry of molecules, called photoacids, whose acid-base properties change on optical excitation. These molecules, which can exhibit immense, but transient, changes in acid-base properties, provide new methods to study acid-base chemistry, and novel approaches to photoactivated, polymerization catalysts. Through Professor Tolbert's research, graduate and postdoctoral students will be exposed to new concepts in acid-base chemistry, and the methodology to examine these transient effects.